Integrated Mathematics, Science, and Technology (IMAST)

The Center for Science, Mathematics and Technology Education will develop integrated materials for seventh grade students centered around the topics of biotechnology, manufacturing and forecasting. Each unit will include objectives, experiential learning, appropriate use of multimedia, and appropriate technology and evaluation instruments. Attention will be given to preparing materials that motivate all students, especially those from groups underrepresented in technological careers, to learn the foundational mathematics, science and technology concepts by involving them in enriched learning experiences relevant to their daily lives. The materials will be developed together with teachers, piloted revised, tested, published and disseminated through a marketing plan supported by a publisher. To maximize the potential for long-range impact, systemic problems that impede the implementation of integrated materials will be identified and alternate solutions will be proposed. Implementation materials will be developed so that systemic changes can be made and the materials taught with minimal teacher development. Student performance data will be gathered to determine the increase in achievement in mathematics, science and technology.